Characterization of Catalyst Particles in Reactive Atmospheres

The objectives of this research are to determine how the microstructure of a mixed metal catalyst system on an oxide support or on carbon influences reactivity and selectivity in ways not predictable from the properties of the individual components, and to use variation in microstructure to control the properties of supported catalysts. Three types of systems are under study: multicomponent particles containing a noble metal and halogen, alkali metal, rare earth, base metal and/or another noble metal; base metal catalysts on various oxide supports; and particles on carbon. High- resolution transmission electron microscopy is used to characterize interactions between constituents of multicomponent particles as well as interactions of particles with supports. Particles on graphite, amorphous carbon, and carbon black are studied to determine how different types of carbon supports and treatment affect structures and catalytic properties. Microscopic particle characterization techniques for multicomponent systems are expanded by using high- resolution analytical transmission electron microscopy and scanning tunnelling microscopy. This is an extension of ongoing efforts in the laboratory of the investigators. The systems studied are selected for their relevance to catalysts actually used in industrial processes or in environmental control.